Japan Society for the Promotion of Science (JSPS) Postdoctoral Awards for United States Researchers

This award will provide supplementary support to enable Dr. DeMar Taylor of Old Dominion University to conduct collaborative research with Dr. Yasuo Chinizei for one year at Mie University in Japan. They will investigate vitellogenesis (egg yolk protein precursor synthesis) in ticks. Dr. Chinzei's lab has recently found an active septide from the tick brain which induces vitellogenin synthesis in the insect's fat body. The goals of this research are to isolate the active septide, elucidate the mechanisms of regulation of vitel- logenesis, and to identify, the important morphological, physiological and biochemical processes involved. Many species of ticks are of medical importance worldwide as vectors of diseases. An understanding of vitellogenin synthesis might enable the blockage of egg protein production by hormonal regulation, thus reducing the number of offspring produced and ultimately controlling tick populations. Dr. Taylor's research has concentrated on sex pheromones of disease trnasmitting ticks. This will be complemented by Chinzei's expertise in vitellogenesis in ticks.